CSR-DMSS, SM: Design and Evaluation of a Scalable Meta-Event Dissemination System

CSR-DMSS, SM: Design and Evaluation of a Scalable Meta-Event
Dissemination System

Project Abstract:

Event dissemination systems offer a powerful middleware for
distributed applications such as electronic trading platforms, news
aggregators, and network intrusion detection systems. Such systems are
usually based on the publish-subscribe paradigm: published events are
delivered to clients who have a supplied a matching
subscription. While most current publish-subscribe systems support
subscriptions that evaluate to true/false on a per-event basis,
emerging applications need support for subscriptions to higher level
"meta-events", which correspond to combinations of basic events. The
challenge in tracking such subscriptions is that there is no single
event, when processed in isolation, permits the evaluation of a
subscription to true or false.

This project designs, implements and evaluates an event dissemination
system that supports tracking of meta-events. The system converts
user-defined subscriptions into "triggers", and efficiently maintains
the state of the triggers using algorithms inspired by the literature
on data stream processing. The system scales with increasing numbers
of subscriptions through merging triggers by identifying commonalities
between them, and through indexing triggers for fast detection of
matching subscriptions for events. The system is evaluated using an
internet-scale testbed, such as Planetlab. Such a meta-event
dissemination system will provide a more expressive interface to the
designer of distributed and web applications, thus transforming the
way in which distributed applications are authored. This is expected
to impact the application of information technology in various fields
such as healthcare, finance, and security. The project enhances
undergraduate and graduate education through strengthening the
freshmen engineering course in Electrical and Computer Engineering and
through developing a strong algorithmic foundation for research
students in networking and distributed computing.